Multiscale theory for paraxial waves with applications

Award Abstract: DMS-0307011, Knut Solna, University of California-Irvine

Title: Multiscale theory for paraxial waves with applications

When a laser beam propagates
through the atmosphere it is affected by bad whether and
turbulence. Similarly wireless communication systems,
remote sensing systems and imaging algorithms are affected
by medium fluctuations.
This proposal aims at developing a theory for waves propagating in
random and multiscale media that is needed to describe
and analyze such phenomena and at applying this theory
for optimal design of systems involving waves
in complicated and multiscale media.
The medium heterogeneity is modeled
by a random field and one aims at
analyzing the statistical character of
the waves that have propagated through the medium.
Two regimes are considered. First, a regime with a clear
``scale separation'' where the medium variations
take place on a microscale,
a scale that is much smaller than the wave length for instance.
Second, the case with variations on a continuum of
scales, like in turbulence, is being considered.
Despite the importance of this regime there is no
general theory that describes how the medium
affects the wave pulse in this case.
In the novel approach set forth here one aims to analyze
these regimes in a unified
framework in which the medium fluctuations are described
by a Brownian field and then one aims to develop a general
scaling theory for such a white noise model. That is, a description
of moments of the wave field and how these
depend on for instance the relative propagation distance.
The analysis involves stochastic differential equations
driven by the Brownian field and how the moments of the
solution can be described in various regimes using martingale
theory, this is a topic of general interest in stochastic analysis.
In the analysis the parabolic or forward scattering approximation
that leads to a random Schr\"odinger equation as well
as acoustic and electromagnetic waves will be considered.

In the atmosphere
small scale fluctuations of
temperature, pressure and humidity caused
by the turbulence of air velocities
lead to complicated and multiscale spatial and temporal variations
in the wave-speed.
The turbulence results therefore in
phenomena like wave beam wander, beam broadening
and intensity fluctuation (scintillation).
The proposed work that will characterize such effects
is important for the design of imaging and
communication algorithms and several applications
will be considered.
The work regarding propagation and communication
in the turbulent atmosphere is particularly important
due to the significance of associated applications
like laser communication and tracking and since so far
little theory is available.
The theory is needed for design
of for instance optimal communication protocols, multiple-input-multiple-output
antenna systems for wireless communication, for design of secure
communication algorithms and robust tracking algorithms
through the atmosphere.
As a part of this work the development
of Speclab a general purpose software package for
analysis of multiscale and turbulent data has been initiated
and it will be further developed.
It has so far been used for analysis of atmospheric turbulence
data (Kirtland Air Force Base) and also for analysis of biomedical data (Harvard University).
This work is important to guide the modeling of the wave phenomena
and ensure the relevance of our work.
The work on waves in multiscale media will also be important for understanding wave-fields
propagating in the heterogeneous earth, the fluctuating and
stratified ocean and through biological tissue.
In these contexts some important applications that will
be considered relates to medical imaging, imaging through
foliage and mine detection.